Combinatorics and Algebraic Structures in Polytope Theory

Polytopes are fundamental geometric objects — higher-dimensional analogues of familiar shapes such as cubes and prisms — with deep connections to optimization, theoretical computer science, and data analysis. This project studies the structure of high-dimensional polytopes, especially those with additional properties such as symmetry, and develops new algebraic and geometric methods to address fundamental open questions concerning their face numbers and combinatorial structure. A distinctive feature of the project is the integration of artificial intelligence and machine learning with classical polyhedral geometry. Building on a collaboration with the PIs of NSF award 2434665 on AI tools for knowledge discovery and rigorous reasoning in polyhedral geometry, this work will generate large computational datasets of high-dimensional polytopes and apply machine-learning techniques to identify new patterns, conjectures, inequalities, and extremal phenomena that may be difficult to detect through traditional approaches alone. The project also supports research training and public engagement at the University of Hawaii at Mānoa through undergraduate research opportunities, interdisciplinary activities connecting mathematics and computer science, and public-facing initiatives including the UH Mānoa Distinguished Lecture Series. These activities advance NSF's mission by promoting mathematical research, training a broad research community, and broadening public engagement with mathematics.

The project develops new methods for studying combinatorial invariants of simplicial and general convex polytopes — including face numbers, missing face numbers, and algebraic Betti numbers. A central application is to classical extremal problems such as the Upper and Lower Bound Theorems, particularly for polytopes with additional structure such as central symmetry, balancedness, and flatness. The work combines algebraic, geometric, combinatorial, and computational techniques. One direction uses Artinian reductions of Stanley–Reisner rings, higher stress spaces, and related algebraic structures to relate algebraic properties of simplicial complexes to the combinatorics of polytopes and manifolds. A second direction studies extremal phenomena for polytopes and polyhedral spheres — including large fatness, extremal toric g-numbers, and chromatic and transversal properties — using methods from extremal combinatorics, triangulations, intersection cohomology, and angle sums. A third direction integrates AI-assisted computation and machine learning into polyhedral geometry: the project will generate large datasets of high-dimensional polytopes and apply machine-learning techniques to discover new inequalities, identify extremal configurations, and distinguish flag vectors realized by polyhedral spheres from those realized by convex polytopes. The methods are also expected to extend to simplicial and polyhedral manifolds, semi-Eulerian posets, and related combinatorial structures.